Attendance of U. S. Scholars at international Freight Pipeline Symposium, July of 1992

This award provides partial travel support to 10 U.S. academic researchers to the International Freight Pipeline Symposium scheduled for July 6-8 in Wollongong, Australia. Support is limited to those authors presenting a paper at the meeting. This Symposium is organized each three years, last time being held in U.S. in 1989. Topics to be covered include capsule transport by pipelines, liquid-solid and gas-solid mixture flow, materials, turbomachinery, instrumentation, and various freight pipeline technologies. Bulk and capsule transportation systems are presently used for various solids such as coal, limestone, copper concentrates, etc. and the technologies are rapidly improving. The previous symposia were proven to be valuable forums for advancing new concepts and technologies in a interdisciplinary environment.//